Phosphonate Ester Modifiers of Serine Hydrolase Activity

The specific goal of this project is the generation of the diasatereomeric 4-substituted phenacyl methylposphonate adducts of chymotrypsin and trypsin-like enzymes. It includes the synthesis of the 4-nitrophenyl esters of respective inhibitors (PMNs), the study of phosphonylation by the their enantiomers, and, in particular of the self-stimulated dephosphonylation reactions. Rational selection of the substituents in the 4- position of phenancyl will provide inhibitors that will regenerate enzyme activity on different time scales. The potential for medical use of these compounds as modifiers of serine hydrolase activity through controllable inactivation/regeneration cycles is suggested. Synthesis of the compounds and kinetic measurements will involve conventional techniques. Non-bonded interactions in the diastereomeric adducts will be evaluated by molecular graphics and mechanics calculations, in an independent, complementary research project. Results of all the investigations will then be used to assess the use of phosphonate esters as active site probes of serine hydrolases. Acetycholinesterase, for which no structural information is presently available, will be the target of similar studies in the future.